PRF/J: Measuring Aggregation in an Aphid Parasitoid: Individual Behavior to Population-level Pattern

Parasitoids (insect parasites that invariably kill their hosts) often aggregate their attacks where their hosts are most abundant. The degree to which attacks are aggregated, however, is highly variable--rates of parasitism (on a per victim basis) sometimes decrease with increasing host density. Mathematical models have shown that the response to the density of their hosts has profound consequences for the dynamics of the interaction. However, the mechanisms underlying aggregation are poorly understood. The proposed research is intended to examine how an aphid parasitoid alters its foraging in response to variation in host density. The goal of the research is to develop a sufficient understanding of the microscale behavior of an aphid parasitoid that can predict within-generation population-level patterns in the field. Most behavioral work to date on host- parasitoid interactions has been restricted to observations in simple laboratory environments or, if in the field, to observations of foraging on a single plant. In contrast, although population studies of host-parasitoid interactions often include information on spatial patterns, they rarely attend to the details of parasitoid behavior. This project consists of lab and field experiments closely coupled to mathematical models, which are used to extrapolate from individual behavior to patterns at the population level.